Summer Education Experience -- 1991

The University of Minnesota will continue Project SEE '91, an intensive seven-week, residential Young Scholars project designed to introduce 20 high school seniors to scientific research and to collegiate-level course work in Biology, Chemistry, Geology, Physical Science and Computer Science. Activities will include laboratory safety and techniques, independent research opportunities, discussions of ethical perspectives on scientific inquiry and career exploration in the sciences.